Travel Awards for US based participants to attend the workshop "Recent Developments in Model Theory", Summer 2011, Ol'eron, France

We are requesting funding to support US participants, particularly graduate
students and recent Ph.D.s, to attend the international workshop Recent
Developments in Model Theory that will be held June 5-11 in Oleron France.
One of the objective of this workshop will be to bring researchers in
Model Theory and some other areas together to present and discuss problems
as well as some recent advances in these areas and thereby facilitate
further interactions. Another goal of the workshop is to provide an informal
setting where graduate students and younger researchers from US can learn
about new trends and interact with one another as well as with prominent
mathematicians.